Mathematical Sciences: A Dynamical System and Control Approach to Computation with Applications to Applied Differential Geometry

When computer scientists think of Computer Programming in mathematical terms, their thoughts are usually dominated by logic and the tools (Recursive Functions, Complexity, Combinatorics, ...) inherited from mathematical logic. P I plans to work with Sussman at the AI Lab of MIT in 1992- 93, to try to propagate the ideas out into the computer science and mathematics community. The P I has some interesting ideas involving what might be called "technology transfer of mathematics." He will work on a computational approach to this activity.